TEA Centers: Kiai Loko Center for Limu (algae) Research

A goal of the Tribal Colleges and Universities Program (TCUP) is to promote the advancement of intellectual leadership within TCUP institutions that will support them in addressing the scientific or engineering priorities of their communities or broadly, of the United States. Linked with this goal is the TCU Enterprise Advancement Centers (TEA Centers) funding strand which provides support for TCUP institutions in establishing thematically based centers whose work applies the institution’s STEM instruction and research capacity to realize benefits for an identified community. The Kiai Loko Center for Limu Research, conceived and managed by personnel from the University of Hawaii - Windward Community College, directly aligns with the TEA Center concept in the significant positive impacts it will have on the health and stability of the local community. The Center partners WCC with non-profit STEM organizations and community experts in two major goals: 1) advancing cross disciplinary knowledge of aquaculture and limu (algae) propagation in support of community needs; and 2) training the next generation of STEM professionals knowledgeable in these realms. A slate of comprehensive activities will be undertaken that includes the support of student-led research addressing a community-influenced agenda around limu and the completion of STEM certificates that will prepare students for entry into the STEM workforce or the pursuit of higher STEM education.

The Kiai Loko Center for Limu Research focuses on the application of local knowledge and Western scientific methods in the study of questions important to the local community related to limu and fishponds. Aquacultural practices employed in the maintenance of healthy fishponds and the production of limu are historically important aspects of community lifestyles that contribute to critical contemporary issues such as food security and the promotion of species variety. The Center’s five-year objectives partner community members, local experts, and STEM professionals in engaging high school students in locally relevant STEM courses, student internships, and the completion of STEM certificates that prepare students for positions as aquaculture technicians. Student-led research will address limu-related issues, advancing the knowledge base surrounding limu health and production. The development of academic pathways will support students in transitioning to and completing STEM college degrees and entry into additional STEM professions. Research findings will be disseminated widely at community and professional meetings and through scientific publications.